Scientific Computing Research Environments for the Mathematical Sciences (SCREMS)

The Department of mathematics at the University of California-Davis will purchase of four computational nodes and additional disk storage to support computational research in five project areas in the mathematical sciences. The research topics lie at the interfaces between different disciplines. One project concerns applied mathematics within the biological and medical sciences; for another the focus is on the applications of mathematics in studying the Earth's mantle; a third project will develop image analysis tools for applications in biology, geophysics, medicine, and meteorology.

These projects will also have a significant impact on the education and training of students and young researchers in the mathematical sciences at the University of California-Davis. The equipment in this grant is part of the continuing efforts of the investigators to bring the frontier of research in the mathematical sciences to all levels of university education.